Compiler Schemes for Server-assisted Energy-efficient Mobile Computing on Handheld Devices

Handheld computing devices with wireless network connections
have a great potential to be powerful mobile tools to
access information and software resources in the networked
world. Unfortunately, the computing power
and connection time of current handheld devices
are severely constrained by the short battery life.
Moreover, the battery issue also places constraints on
various design aspects including program memory and secondary
storage, CPU, and operating system.

With connection to computing servers through wireless networks,
there exist many opportunities for handheld devices to
save battery by carefully utilizing the power of the servers.
This project explores compiler and run-time techniques
to assist the partitioning of application programs into
server tasks and client tasks. The optimal partition
depends on available network bandwidth and on the nature
of applications. In order for handheld devices to optimally
exploit servers for a wide range of applications, careful
tradeoff is made between energy consumed by network communication
versus computation.

The proposed compiler techniques and run-time support
include compile-time and run-time analysis of work and
communication requirement, exploitation
of low-power networking states on handhelds, run-time
decision-making, and a light-weight software coherence mechanism.